Research on Spin-Polarized Hydrogen

The goal is to provide the first experimental deescription of the properties of a weakly interacting Bose gas in the quantum regime. Substantial advances are reported in trapping and cooling atomic hydrogen, as a result of which it is believed that the way is now open to achieve the conditions for Bose-Einstein condensation.